Presidential Young Investigator Award: Large-Scale Problemsin Transportation, Distribution and Logistics

Research involves modeling, algorithic development and computer implementation of large, complex problems arising in transportation, distribution and logistics. Techniques to be employed include interactive optimization, non-classical decomposition and relaxation strategies and incorporation of soft constraints.